Preparation and Properties of Low Tc Copper Oxide Single Crystals

Copper oxide superconductors with transition temperature (Tc) as high as 125K have been much studied during the past few years but the origin of the high Tc and that of the unusual normal state are still unknown. We propose to prepare copper oxide scs with lower Tc and to measure their physical properties. Measurements will be made on high-quality crystals with a systematic variation of doping (carriers). The objective is to elucidate the mechanism for superconductivity and the nature of the anomalous normal state in all copper oxide superconductors.